Dissertation Research: The Social Organization of Production at K'axob, Belize during the Late Formative and Classic Periods

Sabloff Under the direction of Dr. Jeremy Sabloff, Ms. H. Hope Henderson will collect data for her doctoral dissertation. She will conduct archaeological excavation at the Mayan site of K'axob which is located in lowland Belize. The site includes components from both the Formative and Classic periods and therefore documents the transition from egalitarian to larger more complex stratified society. The residential portion of K'axob includes a large number of mounds which represent both single and multifamily dwellings. Ms. Henderson will excavate a sample which includes each type and each time period. On the basis of the lithic remains, the ceramics and the faunal materials she will reconstruct the range of activities conducted. This will permit her to determine variability within each time period and to examine change across time. In recent years archaeologists have learned that most activities in prehistoric societies were conducted on a household level and that these units provided the main productive units. They have hypothesized how household activity changes as societies increase in size and grow more complex. Some theories postulate specialization across households while other archaeologists have suggested that the reverse occurs and the number of roles taken within households increases. Given K'axob's time span and the ease with households can be excavated, the site provides an excellent context to examine this question. This research is important for several reasons. It will provide data of interest to many archaeologists. It will yield new insight into the development of complex societies and will assist in the training of a promising young scientist.